Conferences on the Future of Survey Research

This award funds two conferences in the fall of 2012 that bring together leading scholars to discuss issues that are important for the future of survey research methods in the social, behavioral, and economic sciences. High quality survey research is critical for these sciences. However, the cost of survey methods continues to increase. New insights into best practices on optimal measurement suggest new procedures might be a path to maximizing response rates and data accuracy.

The conferences will address two separate issues: survey methods and data linking and dissemination. The conferences will bring together leading experts to help develop a research agenda in survey methods. The results of the conferences will include a written report and a website that will document the conference presentations via recordings and visuals.

Because many government agencies and private firms also use survey methods to gather information, the broader impacts of better surveys will be substantial.